CAREER: Synthesis and Characterization of Poly(N,N-dialkylaminoisoprene)s

9733837 Sheares Synthesis and Characterization of Poly(N,N-dialkylaminoisoprene)s This CAREER award will exploit a new synthetic route developed in our laboratory for the synthesis of N,N-dialkylaminoisoprene monomers to produce functionalized homopolymers and copolymers. The polymer polarity, in addition to the potential for quaternization and crosslinking, will be utilized to produce materials of both scientific interest and industrial utility. Potential applications include new cationic polyisoprene-based elastomers and new polymer blends. Additionally, there is potential for the poly(N,N-dialkylaminoisoprene)s to be used in the modification of existing materials such as polystyrene- polybutadiene rubber. Changes in adhesion, processability, solubility, microstructure, morphology, thermal and mechanical properties will lead to tailor-made products. In this research, a fundamental understanding of the behavior of polar, diene monomers in anionic, free radical solution and free radical emulsion polymerization processes will also be gained. %%% The goals for this project are not only scientific, but are also educational. These include the training of graduate students and the teaching of undergraduates and high school students. Specifically, graduate students will design and synthesize materials using a structure-property approach. Undergraduates and high school student researchers will examine intriguing, practical problems that can be answered with this chemistry. Multidisciplinary collaboration with engineers, material scientists, and other chemists will be an additional educational experience for students. Finally, it is expected that the research results will be incorporated, where appropriate, into the teaching of undergraduate and graduate courses to help students appreciate the utility of basic concepts . This project, a combination of scientific research and educational training, should have a significant impact in the area of tailor-made, fu nctionalized materials. In the process, students will gain excellent technical and creative skills in the field of materials science. ***